Turbo Multiuser Detection: Analysis, Optimization and Applications

Wang, Xiaodong
Columbia University

Objectives and Significance: The turbo principle [27 ],namely,the strategy that exploits the iterated
exchange of soft information between di .erent blocks in a communication receiver,has grown to be a powerful
tool in attacking a diverse set of problems in communications.In particular,the turbo multiuser detection
(MUD)paradigm [59 ]has attracted signi .cant recent attention as an e .ective technique for joint decoding
in multiuser communication systems.However to date the performance of various turbo MUD schemes
is largely demonstrated via simulations,and the impact of turbo MUD on the network performance (e.g.,
throughput and delay)has not been explored systematically.It also remains unclear at this time how the
upper-layer functionalities (such as ARQ protocol,power control,and admission control)should be designed
to exploit the physical-layer turbo MUD.The objective of the proposed project is to develop analytical tools to
assess and optimize the performance of various turbo MUD methods,and to apply these esults to c oss-layer
design in wireless networks.
Recently a technique known as density evolution [66,67 ]has been developed in the coding community that
permits analysis of iterative decoding algorithm for in .nite-length codewords.In this proposal,under the
density evolution framework,we outline a research plan aimed at understanding of the design and analysis of
turbo multiuser detection for a variety of channel conditions and receiver structures,and the design of some
upper-layer functionalities which takes into account the physical layer turbo MUD.While in this study we
focus on multiuser CDMA systems,the general principle is applicable to several systems,such as space-time
coding systems,OFDM systems,and intersymbol interference systems.